UNC Computer Graphics Laboratory

This project will implement an interactive computer graphics laboratory. The educational functions in the laboratory will introduce the learning efficiencies, disciplinary insights, and data manipulations available through interactive computer graphics techniques for molecular geometry, geographic data, and applied mathematics in the physical sciencs. This Instrumentation and Laboratory Improvement (ILI) award from the Chemical Instrumentation Program will help the Department of Chemistry at the University of North Carolina at Chapel Hill to acquire computer equipment that will be used to enhance undergraduate laboratory instruction.